Workshop on Multiphase Polymeric Materials in the American Chemical Society Spring National Meeting 2009; Salt Lake City, Utah; March 22-26, 2009

The primary objective of this workshop award is to reflect recent advances on several fronts of processing multiphase polymeric materials and to address major challenges related to design and processing issues in multiphase materials for an array of application areas including electronics, alternative energy, aerospace and biomedicine. The Multiphase Polymer Symposium will be held in conjunction with the American Chemical Society Spring National Meeting at the Convention Center in Salt Lake City, Utah, March 22 - 26, 2009.

The symposium will include scientists and engineers from a broad spectrum of disciplines and will provide a platform for a globally diverse community of engineers from the United States, Asia and Europe. The extensive interactions among industry, academia and research institutions facilitated by the symposium are expected to catalyze collaborations in the area of multiphase materials processing which can yield important advances in several industries.